Experimental Study of Heavy Quark Decays at BaBar

9876867
Burchat
Dr. Patricia Burchat proposed to study CP-Violation at the BABAR detector located at the Stanford Linear Accelertor Center. Her Group is in charge of all the monitoring systems for the experiment. Her Group is also committed to data analysis. Dr. Burchat is currently the Deputy Physics/Analysis Coordinator.